Late Quaternary Environments and Climate Change in the Eastern Canadian Arctic Reconstructed from Lake Sediment Cores

This award is for support of a lake coring program in the Eastern Canadian Arctic with the goal of recovering continuous records of environmental change for the last 10 to 15 ka. Pollen and diatom assemblages will be studied, as well as the physical characteristics of the cores. Down-core variations in the stable isotopic ratios of carbon and hydrogen in plant macrofossils and the dissolved organic carbon content of the sediments will be studied. These studies will address questions of climate change, including regional glacial history and sea-level change.